CAHSI INCLUDES Community Workshop on Building CISE Research Capacity at Hispanic-Serving Institutions

The goal of the proposed two-day Computing Alliance of Hispanic-Serving Institutions (CAHSI)
INCLUDES Community workshop is to bring together researchers from Hispanic-Serving Institutions (HSIs) to co-develop an action plan to increase HSI representation in the Computer and Information Science & Engineering (CISE) directorate's portfolio. The investigators will facilitate focused discussions on the factors that support and impede HSIs in securing funding. It is critical for the health of our nation to build capacity at HSIs to conduct research and advance educational attainment in computing of Hispanics and other underrepresented students, including first-generation and low-income populations
who are enrolled in high shares at most HSIs.